Multilayer and Continuously Stratified Flows

Laboratory studies often shed light on oceanic processes. This PI has conducted a number of layered model experiments and has used the results to interpret ocean dynamics. This project is to construct a facility to perform continuously stratified fluid experiments under the influence of flow contractions. An obvious example of such a process is the flow through the Straits of Gibaraltar.